International Council for Exploration of the Sea/Scientific Committee for Oceanic Research

9814297 Steele Continuing support via the Woods Hole Oceanographic Institution will allow U.S. ocean scientists, in the academic research community, to participate in activities of the International Council for the Exploration of the Sea (ICES) and the Scientific Committee for Oceanic Research (SCOR), which are of particular interest to the ocean sciences community, to the National Science Foundation and other Federal agencies, and to ICES as well. ICES is an intergovernmental organization designed to coordinate scientific research, management of fisheries, environmental concerns, and oceanographic matters of common interest to countries bordering the North Atlantic. SCOR serves primarily as an organization to facilitate international collaboration of ocean research through the formation of working groups on various marine topics. Under this award U.S. academic research scientists will participate in selected ICES and SCOR activities in 1998-2000.